Evolutionary Response of Arctic Plant Populations to Climate Change

9321917 Schwaegerle Rising levels of greenhouse gases are expected to bring about a host of changes in climate and terrestrial ecosystems. These changes are expected to be greatest at high latitudes. This project will assess the capacity of three important arctic plant species to adapt to new environments that may arise as a consequence of climate change. Because the exact nature of future climate change is at present unclear, this research will focus on plant response to multiple environmental factors including temperature, moisture, CO2, and nutrients. In this way, models of evolutionary response will be developed that have predictive value among a range of alternative scenarios of climate change. A series of experiments will focus on plant growth rate and morphological traits, relationships between traits and growth, and quantitative genetic analysis. This research is expected to produce evolutionary models of each species that describe (1) the capacity of arctic plant populations to adapt to new environments and (2) the patterns of morphological and physiological changes that would be favored by natural selection in these altered environments. ***